Improvement of Introductory Undergraduate Physics Laboratories for Science, Mathematics and Pre-Engineering Majors

The equipment provided here will be used to obtain new laboratory equipment for the revision of a basic physics laboratory. A variety of experiments will be developed, and computer interfacing will be stressed. This grant is supported under the Instrumentation and Laboratory Improvement Program.